Bridging the Gap Between Sediment Transport and the Evolution of Complex Morphology

ABSTRACT CTS-9424507 PARKER MINNESOTA This research deals with three problems involving the relation between sediment transport and stream morphology. The first consists of the pursuit of a morphologic bedload relation for gravel-bed rivers dominated by alternate bars. A combination of numerical, experimental and field work will be used to move from a local relation for gravel transport to a global one that inherently includes that bar structure. The second is concerned with the formation of fluvially-dominated alluvial fans. Here theory and experiment are to combined to obtain a mechanistic, predictive model of alluvial fan structure and evolution from considerations of the individual distributary channels. The work will be augmented by avaiable field data. The third topic is cyclic steps. This newly-recognized bedform headcuts and chute-and-pool topography. Experiments will be combined with theory for a complete explanation of the form in question.